Primary Electron Transfer Processes in Photosynthetic Bacterial Reaction Centers

The bacterial reaction center (RC) is the membrane bound pigment- protein complex within which light energy is converted into chemical energy. This photoconversion process occurs via a series of fast and highly specific electron transfer reactions that separate charge across the RC (and thus across the membrane) with unity quantum yield. The ultimate goal of this work is to arrive at a comprehensive understanding of this process at a molecular level. To this end, transient absorption spectroscopic measurements spanning the femtosecond to millisecond timescales as well as other spectroscopic studies will be carried out to directly identify and study the intermediate states of charge separation and the rates and yields of their formation and decay. These studies will be carried out on both wild-type RCs and a wide variety of mutant RCs in which one or more amino acids are changed. Numerous unresolved issues regarding the involvement of specific chromophores in the pathway of electron transfer, and the selectivity (or directionality) of these reactions will be addressed. Factors underlying the balancing of the competition between the forward electron transfer reactions and the deactivating (or back) reactions will be investigated. These studies will also address the role of the protein in the charge separation process, both at the level of specific amino acids and at a more global level. The results of this work will be compared with predictions from various theoretical models for electron transfer and, indeed, will likely form the basis for further theoretical developments. %%% The conversion of light energy into chemical energy is essential for life on earth. Detailed studies of the mechanism of this energy conversion process are essential not only for increasing the understanding of one of the most important biological processes, but also as a foundation for devising biomimetic systems for solar energy conversion. The proposed studies will provide diverse information that is critical for elucidating the molecular mechanisms by which the reaction center functions. The studies also will advance knowledge of the factors that control electron transfer, which is one of the most fundamental processes in biology and chemistry. Additionally, the research will provide detailed new information on the effects of pigment- protein interactions and protein dynamics on the energetics, rates and mechanisms of biological processes. Hence, the proposed research should have a very positive impact on our fundamental understanding of photosynthesis and on the applied aspects of photosynthetic energy conversion.